Numerical Inversion of the Laplace Transform and its Applications to Evolution Equations

Jara
DMS-1008101

The investigator studies the theory and applications of the
numerical inversion of the vector-valued Laplace transform. The
objectives are (i) to extend the investigator's results for the
numerical inversion of the Laplace transform beyond the
noise-free case, (ii) to develop new approximation methods for
the numerical inversion of the vector-valued Laplace transform,
(iii) to show that the inversion of the Laplace transform
together with the theory of finite elements provide a solid
foundation for the numerical approximation of solutions of
evolution equations of convolution type, (iv) to apply the
approximation methods to problems arising from transport in
multiscale porous materials, and (v) to provide research
experience for undergraduate students. The main idea is that
approximation methods for the shift operator semigroup on the
space of continuous and exponentially bounded functions with
values in a general Banach space translates into approximation
methods for the inversion of the Laplace transform of these
functions.

Evolution processes arise in many scientific problems, such
as fluid flows, image processing, mechanical systems, relativity,
mathematical finance, and mathematical biology. These processes
are described by the solutions of certain integro-partial
differential equations. However, in most of these cases, the
solutions cannot be calculated explicitly because either they
cannot be found or they are not obtained in a plain algebraic
form. Thus, in order to obtain an accurate description of the
evolution process, one needs to develop accurate approximations
to the solutions of these equations. The scalable methods
recently developed by the investigator and his collaborators
concerning the Laplace transform provide accurate approximations
to solutions of integro-partial differential equations of
convolution type. The principal investigator further develops
and implements new approximation methods, and uses these methods
for the accurate description of different evolution processes.
Undergraduate research experience is provided to students by
using the different methods to approximate the solutions of
problems related to transport in multiscale porous materials,
like oil and gas exploration, or controlling underground sources
of pollution such as high-level radioactive waste and
geologically stored carbon dioxide.